Investigation of T-cell Membrane Dynamics using Optofluidic Intracellular Delivery

This project will develop a new way to place genetic instructions inside immune cells called T cells, which are central to many of today’s most promising cancer immunotherapies. Current methods for engineering T cells often rely on viruses, which can be expensive to manufacture, difficult to scale, and challenging to adapt quickly for different therapeutic cargos. The proposed approach, called optofluidic intracellular delivery, uses gentle fluid flow and brief pulses of light to create temporary openings in the cell membrane so genetic material can enter without using viruses. By making immune-cell engineering safer, more scalable, and potentially more flexible, this work could strengthen the technological foundation for next-generation cell therapies, gene-editing platforms, and other biotechnology applications that require reliable delivery of large biological molecules into living cells.

This project will investigate optofluidic intracellular delivery (OFID) as a vector-free, scalable platform for nucleic acid delivery to T cells, with direct relevance to biotechnology workflows for cell therapy manufacturing, immune-cell engineering, and ex vivo gene modification. OFID combines controlled microfluidic shear with laser-driven photothermal effects in photoactive polymer microchannels to transiently permeabilize the cell membrane while preserving viability and function. The work will quantify the photothermal and mechanical stresses that drive membrane disruption, measure local temperature dynamics using quantum nanothermometry, and characterize calcium-dependent membrane repair and cellular stress responses. These mechanistic studies will be integrated with cargo-delivery experiments in CD8+ T cells to define operating regimes that maximize delivery efficiency while maintaining T cell health. The resulting design principles could inform scalable, non-viral delivery systems for engineered T cells, gene-editing reagents, RNA therapeutics, and other emerging biotech platforms that depend on efficient intracellular delivery.